Summer Topology Conferences 2022

This grant supports US-based participants, especially junior researchers and graduate students, who attend either the 36th Summer Topology Conference (SUMTOPO) meeting hosted at the University of Vienna, Austria, from July 18-22, 2022, or the Prague Symposium on General Topology and its Relations to Modern Analysis and Algebra (TOPOSYM) held July 25-29, 2022, in Prague, Czech Republic. Because of their close geographic and temporal proximity and disjoint lists of plenary speakers, these meetings provide a special opportunity for US researchers to participate in one or both and to meet colleagues in Europe, share their research, start new collaborations, and continue old ones. The primary goal of these conferences is to aid in the dissemination of knowledge of experts in the field of topology. In addition to this, collecting such a group of experts at a meeting will inevitably lead to new collaborations and the furthering of basic research in the field of topology.

SUMTOPO is an annual conference in its 36th installment, which has been hosted both in the US and abroad in recent years, including in South Africa, Ireland, and England. The TOPOSYM conference is held in Prague, Czech Republic in a five-year cycle since 1961. Both meetings have long served as a geographic and intellectual meeting point, and both have a large attendance from both North America (the US in particular) and from Europe. Both conferences cover a broad range of topics on the more analytical side of topology: general and set-theoretic topology, descriptive set theory, continuum theory, topological dynamics, topology in functional analysis and algebra, and categorical topology. They will feature plenary lectures by many leaders in these fields.

More information can be found on the webpages:
SUMTOPO: https://www.univie.ac.at/projektservice-mathematik/e/index.php?event=stc22
TOPOSYM: http://www.toposym.cz/